Summer Physics Research Experience for Undergraduates

A summer program for undergraduates will be held at the University of Michigan-Ann Arbor. The students will work on the various research programs now underway in the Physics Department, and will meet as a group to discuss their experience and progress. NSF support is highly recommended.